Mathematical Sciences: Rotatability, Majorization, and Applications to Design of Experiments

In the statistical design of experiments rotatability is one of the many desirable characteristics of a response surface design. Recent work has, for the first time, provided ways to measure "how rotatable" a design may be when it is not perfectly rotatable. This had previously been assessed by the viewing of tediously obtained contour diagrams. By appealing to matrix majorization arguments, a new and better criterion of rotatability can be obtained. Moreover by adopting a new algebraic format for the response surface, this can be done in a way that makes it easy to extend results to any degree. This new rotatability criterion can then be applied to solve specific response surface design problems. This objectives of this research project in statistics are to provide a new improved way of measuring "how rotatable" a given response surface design is, and to use this criterion to solve various design problems in the response surface area.